REU: Research Opportunities for Undergraduate Students in Laboratory and Space Physics at NASA Goddard Space Flight Center

This grant will provide opportunities for undergraduates to be active participants in laboratory and space physics research. These opportunities include the special advantages of a high- technology environment in a NASA laboratory with guidance provided by researchers who are, in addition, committed to education. The research team is engaged in experimental and theoretical nuclear physics studies, detector development, and high-energy solar flare investigations. This balanced program of laboratory measurements, observations, analysis, and interpretation is focused on addressing questions about the fundamental physical nature of mechanisms responsible for energetic particle acceleration, confinement, and transport. The key team members are each associated with NASA Goddard Space Flight Center, the institution will be the REU Site providing the proposed research environment, The Catholic University of America, the institution through which the students will be employed. Nine specific research topics in the aforementioned fields that are appropriate for undergraduate participation are available. Twenty undergraduates have worked with the group since 1983. Eight of the ten with baccalaureates have pursued advanced degrees in the sciences and in mathematics. This will provide a firmer foundation on which to base student involvement and will provide the opportunity to actively recruit students from a much broader range of backgrounds, especially those from groups underrepresented in the scientific community.